Constraints on EPR Magmatism Through Study of On- and Off-Axis Samples from the N. Orozco Region

This project will continue petrological and geochemical analyses of samples recovered from the East Pacific Rise between the Orozco and Rivera transform faults. The question of the existence of a hotspot contributing magmas to this section of mid-ocean ridge requires more detailed analyses and analyses of samples from older crust off-axis. In addition, new questions have been identified from the work to date, and these questions will be addressed.